Topologically Fault-Tolerant Distributed Quantum Computer Architecture

Quantum computers, if built, will have great impact on defense and
commerce in the area of secure communication. They will also allow
simulation of complex quantum systems, providing an important tool
for nanotechnology. The principal challenge in actually building
quantum computers is finding a way to tolerate imperfections. In
fault-tolerant quantum computing (FTQC), the faulty operations that
cause computational errors must be used to detect and correct those
errors. A radical approach to FTQC is to base the computational
scheme on topology. Computation is performed by braiding
topological structures; fault-tolerance arises naturally due to the
invariance of large-scale topology to small, local distortions
caused by random errors. Until recently, implementation of this
rather abstract idea has demanded exotic, unobserved physical
particles or unrealistically high-dimensional structures. However,
it was recently shown that topological FTQC may be achieved in a
two-dimensional lattice of quantum bits in a scheme relying on a
novel form of quantum entanglement called a cluster state.

This research investigates the conversion of topological
cluster-state-based FTQC into a realistic, scalable, solid-state
hardware architecture. The particular hardware studied relies
critically on computation via communication, enabling reasonably
sized quantum processors to be connected to form quantum
communication networks or large quantum multicomputers. The
investigators experimentally develop semiconductor-based quantum
memories in optical microcavities, optimized for quantum logic
mediated by light in integrated optical waveguides. The research
includes the development of experimental methods to fabricate and
characterize large arrays of these qubits, while detecting and
compensating for fabrication defects. These experimental efforts
are supported by theoretical development of scalable, topologically
fault-tolerant architectures designed around the observed hardware
limitations.